A Computational Theory of Discovery

he models used in inductive inference have their
roots in the models used by the philosophers of
science who were discussing the scientific method.
The goal there, and in prior work in learning theory,
was to come up with an explanation of the phenomenon
under consideration.
However, scientists rarely work directly for the grand goal
of a complete explanation.
The more modest goal of finding features and
facts about the observed data is pursued.
A variety of types of algorithms that could be construed as
discovering their final result will be investigated.
We propose to consider computations that discover rather than compute
their intended result.
A logic of discovery will be developed and investigated.
This study is particularly relevant to contemporary
science as automated data generation techniques
produce sufficient volumes of data to
overwhelm the analysis abilities of humans.
The goal of our work is to illuminate
precisely what can and cannot be accomplished
by automatic data analysis algorithms.
Such algorithms are used in data mining and
text analysis for world wide web search engines.